SITE Summer Workshops in Theoretical Economics for 96-98 at Stanford, CA

9514926 Wilson This grant provides renewed funding for three years for the travel expenses of participants in the annual Summer Workshops on Economic Theory conducted by the Stanford Institute of Theoretical Economics (SITE). Each summer, these six-week workshops bring prominent researchers and younger scholars together for a series of seminar presentations and sustained collaborative research. Now in its 26th year, this series of workshops is the principal forum worldwide for innovative studies of important topics on the forefront of economic analysis. The topics selected for each workshop depend on the current research areas and the anticipated availability of outstanding researchers with important papers to present. Each autumn, the SITE faculty convene in open meetings to develop possible topics. The Director oversees preparation of surveys of the possibilities, followed by a meeting of the SITE Executive Committee to make selections. The topics selected for the 1996 Summer Workshop are: (1) Effects of heterogeneity on aggregate economic fluctuations; (2) Reconsideration of the Foundations of Uncertainty in Economic Equilibrium; (3) Economics of Transition to Market Economies; (4) Financial Contracting and Corporate Control; (5) Endogenous Credit Restrictions; (6) Market Design; (7) Decision Theory for Non-Cooperative Games; and (8) Empirical Estimation and Testing of Theoretical Models.